Geochemical and Dynamical Evolution of the Galapagos Hotspot (Renewal)

This project is for continued study of submarine lava samples and geophysical data collected from the Galapagos platform in 1990. Geochemical studies confirm and extend a horseshoe-shaped pattern of geochemical zonation in the zonation in the subaerial and submarine eruptive products of the Galapagos hotspot. The principal investigators are presently collecting major and trace element concentrations, isotopic ratios, and radiomatic age data from an extensive suite of submarine volcanic rocks and glasses in order to test these hypotheses.